Scalable Parallel Symbolic Computation for Irregular Problems

ABSTRACT
0204113
Gene Cooperman
Notrheastern U

The proposed research is part of an ongoing project to provide the software infrastructure for large symbolic computations. It is proposed to employ the rich set of computational group theory algorithms, with which the P.I. is intimately familiar, as a testbed for analyzing the barriers to wider use of parallelism. In addition
to the algorithmic difficulties of irregular computations that characterize much of symbolic computation, there are barriers based on limitations of RAM in today's hardware. These hardware barriers are
demonstrably real. A random access to RAM can cost more than 1,000 CPU cycles on the most recent architectures. This affects symbolic algebra computations to a much greater extent than traditional
numerical or commercial applications, which emphasize sequential access to RAM. Even some non-parallel applications in symbolic algebra are shown to be primarily memory-bound (bound by slowness of RAM),
rather than CPU-bound, on current architectures. This requires a revised, non-uniform complexity model of RAM.